2006 Gilbert Club Meeting to be held in Berkeley, California.

ABSTRACT

2006 Gilbert Club meeting
Intellectual merit
The Gilbert Club has met every year in Berkeley after the Fall American
Geophysical Union since 1983. It has grown from the original 7 participants to, in 2005,
nearly 278, and has become a forum for new ideas, community initiatives, sustained
communication, and the building of collegiality. Geomorphology has expanded rapidly
in this 23-year period, and the Gilbert Club has contributed to that evolution. The
meeting consists typically of three speakers followed at the end of the day with "pop-ups"
of short reports by any attendee. Last year NSF partially supported the meeting, reducing
the cost to participants significantly, and that caused the attendance to jump by 40% over
the previous year. This year we propose that NSF cover full participation costs.
The meeting is run entirely on volunteer efforts of Berkeley graduate students, so
that the request here is just for room and vehicle rentals, food and beverages. Our size
now requires that we meet in a larger setting than the PI's house in the evening, and
rental for a facility has been added to the request. The participants pay for their own
travel and lodging, so the financial commitment by the participants is still substantial.
Broader Impacts
Under-represented individuals have been invited in the past and are particularly
sought among the new and emerging group of geomorphologists. We actively seek
names and track progress of individuals in order to make speaker invitations when the
individual is ready to give a substantial presentation. Gilbert Club is openly advertised
and anyone is welcome to participate.